POWRE: Driven Nonequilibrium Systems with Quenched Disorder: A Renormalization-Group Study

9720482 McKay This theory project develops a position-space renormalization-group approach to study driven diffusive lattice gases; the theory will be modified and applied to interacting cases and systems with quenched randomness. Systems driven far from equilibrium are prevalent in nature and particularly challenging with respect to fundamental understanding and property prediction. The models to be studied in this project are simple prototypes related to a variety of complex systems such as biological populations, binary fluid flow through random media, and fast ionic conductors. %%% This is a research enhancement grant made under the Professional Opportunities for Women in Research and Education (POWRE) program. The research will contribute basic materials science knowledge at a fundamental level. An important feature of the program is the integration of research and education through undergraduate student participation in research. ***